Graphic Representation of Decision and Risk Information

The proposed research seeks to investigate how people use graphic information in making judgments and decisions. Research on human judgment has become increasingly concerned with the compatibility between the manner in which information is portrayed and the associated information processing strategies invoked in making a decision. However, relatively little is known about the effects of information display on decision making. The two basic concepts behind the research are the lens model paradigm and the compatibility hypothesis. The plan of the research is to undertake a series of empirical studies to examine compatibility effects between the form of the graphic information display and the context of the judgment tasks. The lens model framework is used to conceptualize the relationship between human judgmental processes and the elements or cues in the stimulus environment. Graphic displays will be constructed using varying display characteristics. An important task variable to be studied is time pressure. The research will advance both the development of descriptive theory of human decision behavior and the development of decision aids to improve decision making.